Individual: Presidential Award for Mentoring

Herbert B. Silber
San Jose State University
HRD-9814702
Dr. Silber has a distinguished 25-year record of seeking-out and mentoring minority and disadvantaged students at the high school, undergraduate and graduate levels. The focal point of Dr. Silber's mentoring activity is the laboratory. As evidenced by 90 publications co-authored by students, Dr. Silber involves his students in significant research and supports their efforts. At the national level, Dr. Silber has had a 20-year involvement with the American Chemical Society's SEED program (Summer Educational Experiences for the Disadvantaged), including a very successful three-year appointment as chair of the National SEED Committee.